RUI: Thermally Robust Organophosphorus Ionic Liquids for High-Temperature Applications

With this award, Professor Arsalan Mirjafari of the Department of Chemistry at the State University of New York (SUNY) at Oswego is developing new classes of phosphonium-based ionic liquids designed to remain stable and functional at temperatures above 300 °C. Organic materials that can operate reliably at such high temperatures are needed across many sectors, yet current options are limited by thermal instability. The salts developed in this project are candidates for thermal energy storage and as temperature-responsive materials, with potential relevance to nuclear power generation and renewable energy. The project is carried out at a Primarily Undergraduate Institution (PUI) and supports undergraduate training as a central activity. Undergraduate students receive merit-based summer research support, lowering financial barriers that have limited student participation in research. These efforts contribute to training a future STEM workforce aligned with regional industry.

The research is directed at the rational design of organophosphorus, pi-conjugated ionic liquid systems that combine high thermal stability with tunable thermophysical and photophysical properties. The central hypothesis is that pairing cations that exhibit strong intramolecular charge transfer and efficient molecular packing with thermally stable anions yields materials suited to extreme-temperature applications. This hypothesis builds on published preliminary results in which a set of triphenylphosphonium-based ionic liquids retained thermo-oxidative stability at 300 °C for 96 hours in air, and in which empirical structure–property correlations were established through combined thermal, thermodynamic, and crystallographic analysis. There are three objectives: (i) synthesizing a series of new tetraarylphosphonium ionic liquids through a modular synthetic strategy that allows precise control of physicochemical properties; (ii) establishing quantitative structure–property relationships through thermal, thermodynamic, photophysical, and crystallographic characterization; and (iii) developing predictive models for the design of materials with targeted operational temperature ranges. The work generates fundamental knowledge on thermally robust organic-ion materials and establishes design principles for high-temperature applications.